EAST: Eastern Alliance in Science, Technology, Engineering, and Mathematics

In accordance with its proposal submitted April 18, 2003, the University of Southern Maine (USM) requests $2,400,000 from the National Science Foundation over a 48-month period for a Cooperative Agreement in the program's Regional Alliances for Persons with Disabilities (RAD) track. These funds will be used primarily to increase the participation of students in science and mathematics and change the prevailing attitudes of teachers, counselors, and parents. Seed grants, tiered mentoring, bridge programs, field trips and research experiences will complement the Alliance's efforts.